Upgrade of an in situ electrochemical analyzer (ISEA)

This RAPID proposal seeks funding to produce a next-generation integrated deep-sea in situ geochemical sensing package, with leveraged support from Marine Science and Technology Foundation (MSTF) contributing to sensor development, an improved sensor wand micromanipulator, and overall instrumentation integration with smaller ROVs, and with NSF support contributing to purchasing upgraded ISEA electronics.

Broader Impacts

Integration of this specific NSF-supported instrumentation upgrade with Glazer’s project with the Marine Science & Technology Foundation provide for a synergistic, highly leveraged partnership between academic (UH), federal (NSF), private foundation (MSTF), and small business (AIS, Inc.) entities for addressing complex biogeochemical processes occurring in the deep-sea. The project is expected to result in a series of publications and presentations to be disseminated in appropriate peer-reviewed scientific journals and international meetings.